Collaborative Research: Pattern Matching-Theory and Practice

The advent of the exploding Internet and the terra-bytes of
heterogeneous data in it have made more acute the topic of searching
such large digital databases. The challenges involved go beyond
questions in information retrieval. One may envision seeking images in
films, seeking words in voice data, and seeking phrases in compressed
files and in files of various types.
These challenges have boosted the appearance of myriad start-up
companies and ad-hoc methods for the various tasks.
The PI's approach has been a basic bottom-up long-term study of the
theory of searching. They have a large center of pattern matching
research that has pursued and continues to pursue understanding of the
theoretical underpinnings of generalized searching, coupled with
applications of their various ideas.

the current research will continue the investigation of issues in
generalized searching. In particular:
1. Approximate indexing with a small number of errors.
2. In-place compressed search.
3. ``Reusable'' dynamic programming code.
4. Parameterized matching with ``don't care''s.
Research on the theory of image processing will also be
continued. The particular areas of concentration are:
1. The effect of digitization.
2. Real multi-dimensional scaling.
3. Efficient search of rotated images.
The investigators' research group has started a program of selective
implementation of advanced pattern matching ideas, some in conjunction
with research groups from other application areas. There are plans to
implement text fingerprinting ideas and test their applicability in
IR. In addition a project is planned that incorporates many of the
ideas on searching compressed and heterogeneous files by constructing
an automatic scientific home-page generator and maintainer (guaranteed
to be an instant hit with all professors of Computer Science!).